REU Site: Research Experience for Undergraduates in the Princeton Materials Institute

Princeton University operates a multidisciplinary Research Experience for Undergraduates (REU) site affiliated with the Princeton Materials Institute (PMI). Fifteen undergraduate students are recruited nationwide every year for a nine-week summer research experience under the supervision of science and engineering faculty associated with PMI. Students also attend short courses and seminars on materials science and engineering topics, and participate in visits to local companies involved in materials processing and engineering. Through a series of presentations and organized discussion groups, students are challenged to examine the role of science and engineering research against a broader societal context.